Support for Workshop: Vision 2005: An Action Plan for Strong-Motion Programs To Mitigate Earthquake Losses in Urbanized Areas

9708659 Stepp The strategic plan (April 1996) for the National Earthquake Loss Reduction Program (NEP) opens with the statement, "Although earthquakes are inevitable natural hazards, they need not be inevitable disasters. Through prudent actions our nation can reduce losses of life, casualties, property losses, and social and economic disruptions from future earthquakes." This is a renewal of the national commitment to managing losses in earthquakes that motivated implementation of the National Earthquake Hazards Reduction Program (NEHRP) in 1977. An integral part of the NEP goals is the availability of an adequate data base of strong motion information. Given the broad need for strong motion data to develop earthquake loss reduction measures, recent studies of the key needs for earthquake engineering and earthquake hazard mitigation have emphasized the need to establish an entity to overview and provide broad national perspective of needs for strong motion information and to provide leadership for coordinated development of plans to advance strong motion programs to meet established national goals and strategic targets for reducing earthquake losses. The U.S. Committee for Advancement of Strong Motion Programs (CASMP) was established in 1996 in response to this need. The objective of CASMP is to provide continuing broad national overview of strong motion program needs and to encourage advancements in the collection, dissemination and utilization of strong motion data as a tool for improving public safety in earthquakes. The Committee plans to accomplish its objectives through a series of workshops focusing on the identification of national strong motion data needs; assessment of the degree to which existing strong motion programs meet the national needs for strong motion data; and facilitation of the development of a national strategic plan for strong motion programs. The Committee will promote actions to enhance strong motion programs implementing the national strong motion plan, and will facilitate development of coordinated international strong motion programs to augment U.S. programs. This action is to support the first of the workshops planned. The goal for this workshop is to develop an action plan for strong-motion programs, referred to as Vision 2005, to mitigate earthquake losses in urbanized areas. This workshop will be held in Monterey, CA, 2-4 April 1997.